Data Acquisition Systems with User Configurable Hardware

This project develops a new class of data acquisition systems with user configurable hardware. The primary development effort is the creation of software tools which will enable scientists and engineers who are not skilled hardware designers to utilize such systems. Some of the primary research issues are the development of techniques for specifying and analyzing timing behavior between fixed and configurable hardware and the development of techniques for designing robust interfaces. A typical application of this work is a reconfigurable data acquisition card consisting of a fixed analog section and a configurable digital section built from one or more field programmable gate arrays (FPGAs) and static RAM chips. Existing data acquisition cards are generally used by scientists and engineers who are not skilled hardware designers; however, the currently available tools for FPGAs require significant digital design experience. For a reconfigurable data acquisition card to be useful, it is necessary that the configuration tools accept as input high level programming language which is accessible to a competent programmer. Any custom hardware necessary to interface the analog sections or host CPU must be provided in the form of libraries which can be conveniently linked to the user's code.